The Cosmological Baryon Density

AST-9900842

The cosmological baryon density

David R. Tytler

Dr. Tytler is conducting a two part project. The first part concerns the measurement of the ratio of the relative number of deuterium and hydrogen atoms, D/H, in the early universe. D/H provides the best measurement of the average density of ordinary matter (baryons) in the universe. In standard cosmology, D/H gives the best measure of the ratio between baryon density and photon density, which is a fundamental cosmological constant. D/H provides one of the more direct tests of the big bang nucleosynthesis. Dr. Tytler is measuring D/H from ultraviolet absorption lines that arise in low density ionized gas along the lines of sight to distant quasar stellar objects.

The second part uses these same data to measure the cosmological distribution of metals. This part addresses the question if there was an early generation of widely distributed pregalactic stars. Dr. Tytler is measuring the distribution of Oxygen to Hydrogen (O/H) in the intergalactic medium and comparing it with recent theory predictions. Dr. Tytler is also using these data to estimate the metal abundance in hot collisionally ionized gas.

***